Special Meeting: Workshop on Algorithms for Modern, Massive Datasets

This special meeting will bring together people from the Computational
Statistics and Numerical Linear Algebra communities with people from the
Theoretical Computer Science community to promote cross-fertilization of
ideas. This will hopefully lead to a better understanding of modern
massive data sets as well as invention of new techniques and algorithms
for their modeling and analysis. Most conferences and workshops on
information retrieval and data mining are dominated by studies of
traditional data sets and traditional algorithmic techniques.
Nevertheless, modern data sets have become extremely complex and have
rendered traditional approaches for processing them ineffective in many
instances. The difficulties occur primarily in two ways: modern data sets
are often high-dimensional and massive, and thus novel dimensionality
reduction or sampling-based techniques have to be employed in processing
them, and modern data sets often have complicated nonlinear structures,
and must be modeled with appropriate mathematical objects such as tensors,
symmetric spaces, Lie groups, etc. This special meeting will study data
sets with such complex structures and explore novel techniques for
analyzing such data.

The techniques that will be discussed at the meeting have applicability in
numerous fields of practical and important interest. For example:
(1) Applications in Bioinfomatics and the Medical Sciences include
improved methods to analyze large microarray and high-throughput chemical
data sets for developing new medications, identifying novel gene products,
elucidating protein folding pathways, and the improved detection and
classification of cancer.
(2) Applications in the Social Sciences include improved methods to model
the combinatorial structure of large social networks; this has been used
and will continue to be used to, e.g., identify potential terrorist cells
hidden in a communications network.
(3) Applications in the Geosciences include remote sensors in air-and
spacecraft that produce more data than can currently be stored, but which
must be analyzed for environmental planning, weather forecasting, and
public health contamination issues.
(4) Applications in Computer Vision include novel ways to identify noisy
images of targets and faces for improved target identification and
individual identification in more realistic settings.